RUI: Energies of Mineral Processes

9303814 Hovis This research project will focus on energies of mineral processes. Aspects of particular interest include the energies of mixing in ternary feldspars and the nepheline- kalsilite system as determined by investigating the enthalpies and volumes of K-Na mixing, the Gibbs energies and entropies of mixing for nepheline-kalsilite as yielded by phase equilibrium (solvus) measurements, the dependence of enthalpies and volumes of mixing, normally assumed to be constant with T and P, on these variables, and the energies associated with other mineral processes such as order- disorder in orthopyroxenes and exsolution in alkali feldspars. The major techniques to be utilized include solution calorimetry, drop calorimetry, and room- and high- temperature x-ray powder diffraction.